Local Structure and Dynamics of Inorganic Network Glasses

This proposal plans to study the structure of borate glasses, and the low temperature spin dynamics of the boron and oxygen sites, through the use of a number of techniques including dynamic angle spinning (DAS), magic angle spinning (MAS), 2D exchange NMR, and low-field nuclear quadruple resonance. The proposed program plans also to determine the chemical and configurational orderings in a range of IV-V-VI non-oxide chalcogenide glasses and study the effect of network connectivity on the nuclear spin relaxation. %%%% This research will provide information which can aim greatly our understanding of glass structures. The use of dynamic technique provides the prospect of a detailed characterization of the disorder in glasses containing quadrupolar nuclei. This may be especially important when quadrupolar nuclei are the network forming cations. The dynamic information may be more important in providing link between general glass theory and the physical meaning of the theoretical concepts.